Robert Noyce Teacher Scholarship Program Track 3 at the University of Minnesota

This Noyce Track 3 project aims to serve the national need of developing highly effective middle and high school science teacher leaders. Specifically, the project will support 18 science teacher leaders in Saint Paul Public Schools to improve access to high-quality science education for all students. Scholars will receive an Educational Specialist Degree in teacher leadership and National Board Certification. The proposed project components will enable high-achieving in-service teachers to support student learning through the exploration of personally meaningful phenomena and real-world problems. In addition, the project will disseminate learning about phenomena-based science teaching to teachers throughout Minnesota. Through this work, students will receive high-quality science instruction to better prepare them for the future.

This project at the University of Minnesota includes partnerships with Saint Paul Public Schools, BSCS Science Learning, and Hamline University. Project goals include (i) recruiting 18 secondary science teachers to become teacher leaders, (ii) developing and supporting teacher leaders’ capacity to enhance student learning through standards-aligned, phenomena-based instruction, (iii) developing teacher leaders' capacity to provide statewide leadership, (iv) developing an online platform to disseminate project artifacts, and (v) developing of a state-wide science network. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (i) How do teacher leaders apply their learning to design meaningful learning and assessment opportunities for students? (ii) How do teacher leaders mobilize the project vision, tools, and processes to identify and address problems of practice? (iii) How do teacher leaders incorporate their professional learning into their work with other science teachers? (iv) To what extent are teacher leaders able to impact other teachers’ learning and science teaching? The results of this project will be disseminated to help enhance the field. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.